CEDAR: Studies of Mesospheric Chemistry and Dynamics Through Ground-based and Airborne Observations

The PIs would like to participate in the next scheduled airborne and groundbased lidar/radar/optical observations campaign, the ALOHA-93 campaign; and to conduct various small-scale organized groundbased campaigns within their laboratory and other US research institutions. Additionally, the research planned includes the measurements of OH rotational temperature, gravity wave induced intensity and temperature oscillations, vibrational distribution of OH(2), and correlation studies of mesospheric nightglow O(1S), O2(1) and OH Meinel band emissions.